Einstein Manifolds and Analysis on Metric Measure Spaces

Abstract

Award: DMS-0704404
Principal Investigator: Jeff Cheeger

The first main goal (joint with G. Tian) is to describe the how
Einstein metrics can degenerate. In our previous work we gave a
good local description of collapse of Einstein metrics in
dimension 4, showing that away from a definite number of points
collapse occurs with bounded curvature and in the limit, gives
rise to Einstein metrics with continous symmetries. We want to
globalize this local description and, in so far as possible,
extend it to higher dimensions. A second main goal of the
project, joint with B. Kleiner, is to study first order calculus
on metric measure spaces for (Lipschitz) functions with values in
infinite dimensional Banach spaces. In this context,
differentiation theorems can give rise to bi-Lipschitz
nonembedding theorems. For applications arising in computer
science, the most interesting target is the space "Ell-One". In
this case, a Lipschitz function need not be differentiable
(anywhere) unless (as Kleiner and I discovered) differentiability
is understood in a suitable extended sense. This sense was still
strong enough to enable us give a counter example to the
Goemans-Linial conjecture. An important aspect of the present
project (joint with Kleiner and A. Naor) is to make this
nonembedding theorem quantitative (which is what computer
scientists really want). Our approach requires the developement
of new techniques in geometric measure theory.

The study of certain special (higher dimensional) smoothly curved
objects called Einstein manifolds is important in mathematics and
in modern physics e.g. in connection with the theory of
relativity and in string theory. In particular, we want a theory
which tells us what can be the "most distorted" examples of such
objects. Our project is concerned with this issue. A second
main focus has to do with "metric spaces". By a metric space,
one can understand any collection of objects where there is a
notion of distance between any two of them. For example, the
objects might be finger prints and a suitable notion of distance
would enable a computer to detect which finger prints closely
matcheda given one. A key issue in both the pure and applied
aspects of the subject, is to be able to decide whether a
"complicated" metric space which one wants to understand, can be
realized (perhaps in a non-obvious way) as a subset of a
"simpler" metrric space which one already understands. In our
project, sophistocated tools from pure mathematics are developed
which can be used in various cases (of pure and applied interest)
to decide the feasibility of such an approach.